Population Biology of Caribbean Octocorals

9521453 Brazeau Fertilization success among sessile, marine invertebrates is a largely unknown variable bridging those factors which field ecologists can measure (fecundity, organism size, population abundance) and one often difficult to estimate (reproductive success). Using the Caribbean octocoral Baiareum asbestinum as a model animal, this project will examine temporal and spatial variation in reproductive success for male and female colonies. The reserach will test the specific prediction that female fertilization success is directly proportional to the nearby abundance male colonies. This information is crucial for understanding the abundance and growth of invertebrate populations in coral reef ecosystems and will provide important information for the successful restoration and management of coral reefs worldwide. ***